The Reconstruction of Recent Earth History

The profound change in conceptions of space, "from the closed world to the infinite universe," has been matched by a parallel change in conceptions of time, from a universe a few thousand years old to one estimated in billions. Those two historical developments have been of equal cultural importance, but the latter is far less understood. This change in human understanding of time of our world should not be considered primarily as a mere expansion of the timescale, but rather in terms of a reconstruction of the history of nature. The crucial period in the reconstruction of earth history was the early 19th century, during which a plethora of competing conjectures was replaced by a broadly consensual view that is still embedded in the modern earth sciences. The most decisive part of this research was the reconstruction of geologically recent earth history (in modern terms, Cenozoic). This penetrated what was perceived as an epistemic barrier between human and prehuman history, and clarified the enigmatic event (first conceived as a Deluge, later as an Ice Age) that marked that boundary. It is this later period that Professor Rudwick is examining in this fundamentally important study.